Development of a Process-Driven, Research-Oriented Field Environmental Program with Modern Sampling and Analysis Equipment

This project produces scientifically literate, environmentally aware citizens among non-science majors, and competitively educated, critically thinking environmental biology majors. The focus is a watershed-stream complex integral to the campus. The scientific method is experienced by students through hands-on data acquisition, analyses and interpretations in assigned class-cooperative research projects. To educate students in policy processes, multiple classes coordinate data to produce an environmental impact assessment, at least once a year. The project also emphasizes the importance of data quality objectives, sampling protocols, precision in the field, documentation, and adequate databases from which the students can draw conclusions. Underrepresented groups in science are addressed, and a strong component involves field practicum experiences for individuals pursuing a teaching career with an emphasis in environmental studies.